Analysis of Transport Measurements on the Irvine Q-Machine

The project provides a small amount of funding for the writing of a monograph which analyzes the results of transport measurements in the Q-machine at Irvine. The information in the monograph, which summarizes the research on this experimental device over the past thirty years, will be extremely useful to other plasma physicists engaged in the physics of transport in plasmas.